U.S.-U.S.S.R. Workshop on Soviet-American Cooperation in Arctic/Northern Social Sciences (Moscow: September 1990)

Recent events in both the United States and the Soviet Union have created a productive environment for, and strong interest in, scientific cooperation in the field of Arctic social science research. In the United States, the Arctic Policy Research Act of 1984, together with reports of the National Academy of Sciences (NAS) and other bodies, have focused attention on this field; as a result the National Science Foundation (NSF) has recently established a new program in Arctic Social Science Research. In the U.S.S.R., intense public debate has emerged over the socioeconomic and ecological impacts of northern development has led to significant interest in social science research on these areas on the part of the Soviet scientific community. The primary objective of this workshop is to take advantage of the rising interest in both countries in this field by giving leading U.S. and Soviet specialists an opportunity to exchange information on current work and to develop plans for long-term cooperative research, with particular emphasis on the relationships between human communities and the biological and physical systems that make up the natural environment of the Arctic. The workshop is being organized jointly by the U.S. National Academy of Sciences (NAS) and the Academy of Sciences of the U.S.S.R. (ASUSSR). The NAS participation is being managed by the NAS/National Research Council Polar Research Board and the delegation will be led by Dr. Oran Young of Dartmouth College. The Soviet delegation, under the auspices of the ASUSSR Commission for Arctic Research, will be chaired by Academician V.M. Kotlyakov, Director of the ASUSSR Institute of Geography. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.